Mathematical Sciences: Time Series Analysis and LongitudinalData

This research is to develop an approach to modelling correlation over time by means of auto-regressive moving average estimates rather than by means of the traditional assumption of equicorrelated repeated measures. Traditional statistical theory is restricted by the assumptions that (1) measurements taken on experimental subjects are all taken serially at the same times, (2) the series of measurements taken on each subject can be well represented by polynomials of the same degree, (3) the polynomial coefficients have a multivariate normal distribution across subjects and (4) the number of subjects is greater than the sum of the degree of the polynomials and the number of constants used to model the dependent variables in the multivariate analysis. The proposed research aims to provide a theoretical framework that will accommodate experiments where these assumptions are unrealistic and invalid. A major tool to be used in determining algorithms for calculating the exact likelihoods is the Kalman filter, by which serial correlations can be modeled within each subject. This research is in the general area of time series analysis, an area receiving an increasing amount of attention in statistics. The attention is reflective of the push to free statistical methods from "classical" assumptions which were largely imposed because of the traditionally high costs of computation. The aim of this research is to provide sound statistical methods for a common experimental situation; experiments in this class do not have appropriate, i.e. meaningful, statistical tools available for assessing effects and trends. The experimental situation which will be impacted by this research occurs in many sciences and is characterized by the goal of assessing the effects of some factors or treatments that may change over time, coupled with a lack of experimenter control over exactly when and where measurements can be taken.